Collaborative Research: RII FEC: Interdisciplinary Program of Advancing Climate Extreme Resilience in Soybean

The frequency of different extreme environmental events poses a significant threat to the health of people, livestock, and agriculture by causing economic disruption that affects local communities. For instance, heat and drought are expected to reduce soybean yields by 40%, and these effects are predicted to be particularly severe in most Southern US soybean-growing areas. To address this challenge, this project brings together a team of scientists, educators, social and economic researchers, extension specialists, and outreach professionals. They will assess the impact of changes in the environment on soybean yields, from the cellular level to the whole plant, as well as on associated microbial communities, utilizing advanced technologies and artificial intelligence. The team will also develop solutions to boost soybean yields. The impacts of this project will be evaluated by social and economic scientists. The project also focuses on education and workforce development. An important goal of this project is to train and support students, teachers, and early-career researchers. The project provides training for teachers and students and will reach thousands of K-12 students annually. The results of the project will also benefit other crops and improve food security both in the US and globally. By integrating innovative research with education and community outreach, the team will build a sustainable future for agriculture and positively impact affected communities.

To combat the decline of soybean yield, this initiative conducts extensive research from "single cell to field-based phenomics." The team includes 11 STEM experts, social and economic scientists, extension specialists, and outreach professionals. The project aims to enhance soybean resilience to heat and drought through five key strategies by generating single-cell level data, using advanced sensing to collect detailed morphological and physiological data, evaluating soil chemistry, root structures, and microbial communities, utilizing network science and Artificial Intelligence to find novel RNA markers and beneficial microbes, and testing selected markers and microbes in field conditions. The project aims to enhance sustainable soybean production by understanding stress responses from cellular to field levels. It integrates data from diverse scientific disciplines to develop precision agriculture solutions and assess their impacts. Moreover, the project employs a comprehensive, multipronged approach with eight programs to train a STEM workforce. Overall, the project aims to advance knowledge from single-cell -omics to phenomics, develop strategies that integrate data from various scientific fields and technologies, provide precision agriculture solutions using cultured microbes in field conditions, and assess the impact on a range of communities. Moreover, it will broaden the pipeline for individuals to enter STEM research careers.